Stable Isotopes of N20 Emitted from Tropical Soils: Causes of Spatial Variability and Implications for Constraining the Global N20 Budget

This project will use stable isotope measurements to provide novel information on the most important natural source of nitrous oxide (N2O), emissions from tropical soils. Preliminary measurements in tropical rain forest soils show considerable spatial variation in the isotopic composition of N2O emitted in the rainy season. It is hypothesized that the causes of spatial variability in N2O emissions reflect differences in microbial processes and physical transport. Measurements will be carried out in Brazil in collaboration with the NASA LBA program. The effect of nitrate fertilizer will be investigated. Laboratory incubation experiments will be aimed at a process-level understanding of denitrification. This project is supported jointly by the Divisions of Earth and Atmospheric Sciences through the Environmental Geochemistry and Biogeochemistry Program (EGB).